UFE: Workshop on Innovative Physics Experiments for Beginning College Faculty

A week-long workshop is being held to develop innovative and inexpensive physics experiments and physics-at-home activities for Freshman level General Physics courses. Most U.S. universities offer such courses and generally these courses have large enrollments. In order to reduce the cost of offering such courses and to provide innovative, hands-on laboratory experiments and home activities, twenty-five such exercises to twenty-five physics faculty members from HBCUs in the Southeastern U.S have been developed, tested, evaluated, and disseminated. Based on the positive feedback from earlier workshops, the present workshop will develop, test, evaluate, and disseminate about twenty-five more innovative, hands-on physics experiments and home-activities to twenty-five beginning physics faculty from other two-year and four-year colleges and universities. All fifty innovative physics experiments (twenty-five old and twenty-five new) will be field tested by the participants of the workshop. Each participant will select at least ten experiments for field testing and evaluation in his\her courses. The results of field testing and evaluations will be compiled by the director. All experiments will be refined and ranked by the participants in numerical order and the top ten experiments will be presented at AAPT meetings by their originators and developers. All experiments will be stored on electronic media and compiled into a book format. Each participant will receive copies of the experiments in both formats.